Special Project: International Conference on Virtual Worlds and Simulation; San Francisco, California, January 18 - 20, 1999

EIA - 9904324
Gallagher, William
Society for Computer Simulation

SPECIAL PROJECT: INTERNATIONAL CONFERENCE ON VIRTUAL WORLDS
AND SIMULATION

Over the last four years, new advances have been made in creating collaborative Virtual places, popular with both intelligent agents and human players. These virtual worlds make use of simulations to create the collaborative environment or virtual world, along with its objects and agents. New applications of these technologies are appearing in fields as diverse as business, manufacturing and design, medicine, education, and training. This award provides support for university attendance at a conference to exchange new ideas for advancing the use of virtual worlds in different fields of application.